Symbolic-Numeric Methods and Data Visualization Strategies for Scientific Concurrent Computation

The research project "Scientific User Interface for Parallel Computing" and is concerned with the design and implementation of user interface systems that allow engineers and scientists to prototype differential equation based computer models without the need to undertake computer programming, per se. A system, called SCENE (Scientific Computation Environment for Numerical Experimentation) has been developed which allows its users to enter models in mathematical form, effect interactive solution to those models, examine the output in a variety of graphical formats, and invoke "computational steering" to alter the models during run-time. SCENE makes use of a variety of disciplines, including Computational Engineering, Symbolic - Numeric Computation, and Computational Mathematics. This research will extend SCENE to a wider class of problems, larger problems, and problems which normally required a mix of numeric and symbolic procedures. Following is a overview of the research extension: Computational Engineering: Interactive user specification of filter functions (local or non-local) for SCENE graphics and visualization tools Object-oriented data management with large data sets distributed over numerous resources and with concurrent access strategies Symbolic - Numeric Computation: Alternate and more efficient tools for the SCENE ordinary and partial differential equation solver Symbolic domain algebra for private versus shared memory allocation in parallel computations Domain algebra methods for use in SCENE's automatic meshing sub-system Computational Mathematics: Incorporate into SCENE symbolic computation and mathematics expert system for singular perturbation problems Generalized Flux Balance methods for parallel partial differential equation solver Education and Human Resources Development: Implement a summer high school science/math teacher - student program to complement our present undergraduate participation program